Continuation of WOCE Current Meter Data Assembly Center

9907117 Pillsbury
Support is provided to complete the data assembly of the current meter data
collected during the World Ocean Circulation Experiment (WOCE). The other
purpose of this Data Assembly Center (DAC) is to process the data if necessary
to a consistent standrad, make the data available to all interested scientists and
finally submit them to the national Ocean Data Center for worldwide distribution.
Access to the data is via a Web site and CD-ROMs.